Hormonal Regulation of Gene Expression in Cereal Aleurone Layers

9408900 Ho The plant hormone, gibberellin (GA), exerts regulatory roles in several important physiological and developmental processes such as seed germination and post-germination growth, stem elongation and flower induction. Gibberellin and another hormone, abscisic acid (ABA), are known to regulate the synthesis and secretion of several enzymes which are responsible for the utilization of nutrients stored in cereal grains. The most abundant among these enzymes are the starch-degrading alpha-amylases and the storage protein- degrading proteinases. As the continuation of long term effort in elucidating the mode of action of these two plant hormones, the effect of hormones on the coordinated expression of alpha-amylase and protease genes will be studied in the aleurone layers of germinating barley seeds. Specifically it is planned to: 1) analyze the cis-acting elements in the protease promoter that are responsible for hormonal regulation, 2) investigate how GA and ABA regulate the level/activity of this DNA binding protein, and 3) isolate and characterize cDNA clones for "early" GA-induced genes whose expression has been suggested to be important for later alpha-amylase and proteinase expression. It is hoped that the information obtained in this proposed project will contribute to our understanding of the molecular action of these hormones on gene regulation in plants. ***